Workshop on New Direction on HCI Education and Research; December 18, 19, and 20, 1993; Washington, D.C.

9444133 Strong This is a supplement to cover additional costs of publication, mailing, and travel associated with the dissemination of the results of the above-mentioned workshop including presentations at a series of meetings at different places including national human-computer interaction conferences and the computer science department chairs annual meeting. The final report is mailed to all relevant academic departments in the country.